Scalar and Wave Transport in Random Flows

DMS 9971322

Scalar and Wave Transport in Random Flows

Albert Fannjiang

University of California Davis

ABSTRACT

This project concerns the transport of particles, sound and magnetic
fields in turbulent flows. This study seeks new, fundamental
understanding of the the effect of the multiscaled, long-range
correlated random flows on large scale transport. Using the ideas of
sampling drift, eddy diffusivity, variational principles and other
methods we show that non-Markovian transport, such as fractional
Brownian motions, arises in certain random flows with long-range
correlations, and it stands as an alternative macro-transport model to
Markovian transport, such as Brownian motion. For wave transport, we
propose a phase-space approach by means of the Wigner transform. We
show that a middle range of sound frequencies couples with the flow
field: they convert into each other through mutual scattering and
stretching. Transport of waves at long times can be described by
radiative transfer equations.

Transport in fluid flows is ubiquitous. Transport of particles and
waves is among the most important mechanisms affecting environment or
global change; it is also a fundamental process in chemical engineering
and materials processing. Natural or engineering flows are very
complicated due to primarily the presence of phenomena of many
different length scales. We study these multiple-scale phenomena for a
standard model by a rigorous, novel approach. We introduce a new
framework, concepts and methods which will be very useful for
understanding transport in general fluids with multiple scales.